Planning Grant to Develop Teacher Institute: Teacher Enhancement

This project is a one year planning program that will lead to the submission of a proposal from Florida State University for a Teacher Enhancement Institute to serve high school biology teachers from the state of Florida. The planning process will be facilitated by a Planning Committee with representation from all segments of the Florida biology education community. Cost sharing equals 33% of the NSF award.